CISE Educational Infrastructure: Compiler and Architecture Software Tools

9312649 Dietz Under this project, previously developed research tools for computer architecture performance analysis and for assembler, compiler, and translator construction will be adapted and augmented to create the foundation for an experimental approach to integrated system design at the undergraduate level. The emphasis will be on making the tools powerful and easy-to-use, providing software support, and developing tool-based modular experiments tied to specific concepts in computer system design. These experiments will enhance traditional courses, especially those involving computer architecture and compilers. At the lowest level, the tools will facilitate experimentation with simple concepts in architecture design and system software construction. At the highest level, they will support experiments that allow students to examine design tradeoffs in complete systems, where the interaction of architecture and system software is varied and evaluated. This new and innovative educational material will be utilized in a new Bachelor of Science in Computer Engineering degree program and also, as appropriate, in the Computer Science program at Purdue. The dissemination plan makes heavy use of electronic distribution. Videotapes and teleconferences, produced using Purdue's Continuing Engineering Education facilities, will provide "electronic instructors' manuals" to help other schools adopt the tools and experiments. ***